Purchase of a System for Metabolic Microcalorimetry and Respiromentry

This proposal requests funds to obtain a calorimeter system which will allow the investigators to study metabolic rates and the partitioning of those rates between aerobic and anaerobic components. The instrumentation requested will support at least five major projects. (1) Metabolic studies of marine invertebrates exposed to environmental changes in oxygen content (2) metabolic studies of marine organisms which are widely tolerant of oxygen variation and others which are intolerant of oxygen (species dwelling in oxygen-poor sediments) (3) the effects of toxic metabolites on mineralization processes in marine sediments (4) metabolism by larval invertebrates during embryonic development (5) anaerobic metabolism in genetically different strains of embryonic fish. The instrumentation will permit studies not feasible by other methods.